Resolution and Reconstitution of Photosystem I in Cyanobacteria and Higher Plants

This project is aimed at elucidating the biochemical composition of the Photosystem I reaction center complex in cyanobacteria and green plants. Dr. Golbeck's recently demonstrated ability to resolve the Photosystem I complex into the core protein (containing P700 and the iron sulfur center FX) and the low molecular mass polypeptides containing the iron sulfur centers FA and FB, and the ability to reconstitute the Photosystem I complex from its purified components, has provided new and important research opportunities in Photosystem I. The reaction center of a photosynthetic system is where light energy is transformed into chemical energy. The Photosystem I reaction center consists of a membrane-bound, multiprotein complex that functions as a light-driven plastocyanin: ferredoxin oxidoreductase. The electron transfer components include a chlorophyll primary electron donor, a chlorophyll primary electron acceptor, a quinone intermediate electron acceptor and three iron-sulfur clusters.